Continued Studies of Marine Farm Engineering

The purpose of this continuing project is to develop a set of engineering principles that can be used to design marine farms for U.S. waters, taking into account both the biological requirements of the organisms being farmed, and site-specific climatological and oceanographic conditions. The information needed to select a farm site, design and install a farm, and print, cultivate and harvest a crop must, for now, be gleaned from Japanese and Chinese literature, or books that focus on the cultivation of a specific group of organisms. During the grant period, we will develop a real-time, on- site measurement and analysis system to quantify farm performance and immediately make adjustments at sea. This will greatly speed up the process of identifying new design principles. It will be possible to measure farm performance and then change buoyancy, adjust elastic members, and control flow around and through containers by using velcro-attached fins, damping disks, screens and scoops. We will use dye and underwater photography to visualize and record flow patterns.